2012 SoS Community Meeting

This proposed task provides the support for a community meeting by the Federal agencies, whose mission is to advance the science and technology of cyber security, with leading experts and researchers in academia, industry, and government at the Gaylord National Hotel and Convention Center, National Harbor, Maryland. This meeting will focus on recent progress in developing the scientific foundation for the design and analysis of trusted systems.